Altimetric Studies of Ocean Tides

*** 9633527 Egbert In this project the PIs will study the dynamics of global ocean tides, using TOPEX/Poseidon data and numerical models. Specific focus will be on Tidal Dissipation, long period tides, and temporal variability.